ITR/SY: A High Performance Memory Manager for Multithreaded Applications

Abstract:
Recent advances in software engineering, such as graphical user interfaces
and object-oriented programming, have caused applications to become more
memory intensive. These applications tend to allocate dynamic memory
prolifically. Moreover, automatic dynamic memory reclamation (garbage
collection, GC) has become a popular feature in modern programming
languages such as Java. As a result, the time consumed by dynamic storage
management can be up to one-third of the program execution time. The
Dynamic Memory Management Unit (DMMU), a special-purpose hardware
mechanism based on bitmaps and combinational logic can greatly diminish
this overhead. The preliminary results show that the hit ratio for 2
Kbits and 8 Kbits buffer range from 84-99% and 95-99%, respectively. The
hardware complexity of the proposed scheme is O(n), where n is the size of
the bit-vector. For a design with 20K gates and 97% miss rate, the overall
speedup can be as high as 1.41. This proposal calls for the integration of
this hardware unit into SMP systems, which would allow concurrent garbage
collection in multithreaded-multiprocessors environments. This can speed
up the performance of server applications written in Object-oriented
languages such as C++ and Java. Additionally, this proposal also calls
for the study of garbage collection triggering points. The preliminary
study indicates that time-based triggering point may yield higher garbage
collection efficiency than the traditional space-based approach.